Role of FAK in Migrating Cells During Sea Urchin Embryogenesis

Many cell movements depend on dynamic interactions between the
extracellular matrix and focal adhesion protein complexes, which anchor
the intracellular cytoskeleton to the extracellular matrix. The proposal
is to study the regulatory role of focal adhesion kinase or FAK in the
morphogenesis of the translucent sea urchin embryo.

(1) The initial goal is to determine in which cells and types of cell
movements FAK found. Confocal microscopy will allow three-dimension
reconstruction of the embryos. Preliminary studies show that FAK is found
in the thickening vegetal plate of blastula embryos, in primary mesenchyme
cells migrating in the blastocoel, in secondary mesenchyme cells
responsible for fusion of the archenteron with the oral plate, and in the
thickening animal pole from which the pluteus arms extend.

(2) The second goal will be to determine the functional role of FAK by
microinjecting into embryos a construct of FAK that contains only the
targeting domain. The hypothesis is that this domain will compete with
endogenous FAK and result in abnormal gastrulation by slowing or aborting
the normal movements of cells.

(3) Sea urchin embryos have at least three isoforms of FAK. The goal is to
determine whether these isoforms of FAK are differentially expressed in
sea urchin embryos and when each is expressed. This information could be
significant since multiple isoforms of FAK have also been isolated from
Xenopus and mouse embryos, but the function of the various isoforms is not
known.

(4) The last goal is to determine how focal adhesion complexes dynamically
change in embryos. mRNAs and cDNAs of FAK-green fluorescent protein
constructs will be injected into eggs to watch the dynamics of focal
adhesion formation in motile cells of the embryos. These observations
will be done with confocal microscopy in real time.

Significance: Although the roles of focal adhesions during the migration
of embryonic fibroblast cells in culture are being extensively studied,
little has been published on the roles of focal adhesions during
embryogenesis and none in living embryos. This proposal introduces new
technology to address fundamental mechanisms of cell movements in embryos
that have not been studied in such a dynamic and complex system.